Sixth International Conference on Nucleus-Nucleus Collisions; Gatlinburg, Tennessee

This grant provides partial support for the participation of advanced graduate students and postdocs in the 6th International Conference on Nucleus-Nucleus Collisions, to be held in Gatlinburg, Tennessee, June 2-6, 1997. The Conference is the major IUPAP-sponsored topical conference on nucleus-nucleus collisions covering the entire available energy domain from close to the Coulomb barrier to ultra- relativistic energies.